ssp160 and Chironomus-Secretory Protein Assembly

Aquatic larvae of the midge, Chironomus, produce silk-like fibers which are composite polymers of secretory proteins synthesized by the larval salivary glands. How these proteins assemble into water-insoluble fibers as they exit the gland through the salivary duct is not known. The special lobe of Chironomus thummi salivary glands consists of four cells which synthesize a unique secretory protein, ssp160. The proximity of the special lobe to the salivary duct implies that ssp160 may somehow be involved in the assembly and processing of secretory proteins into supramolecular fibers as they exit the gland via the duct. The objectives of this proposal are to learn: 1) the primary structure of ssp160 by cloning and sequencing its cDNA, 2) determine the level at which its cell- specific synthesis is regulated by measuring in vivo rates of transcription and steady-state levels of mRNA and protein, and 3) begin to dissect its involvement in Chironomid secretory protein disassembly and reassembly in vitro. %%% This project will enhance our understanding of the composition, assembly and processing of a unique biomaterial, Chironomid silk. Furthermore, the information gained will be applicable to the design of novel peptide-based biomolecular materials.